Louis Stokes Alliances for Minority Participation (LSAMP): Alabama Louis Stokes Alliances for Minority Participation Phase III

The underrepresentation of minorities in the science, mathematics, engineering, and technology
workforce is still a national problem, ten years after the National Science Foundation (NFS) initiated
the Louis Stokes Alliances for Minority Participation (LSAMP) Program. By all accounts great
progress has been made, but not enough to turn the problem around. As one of the six oldest National
Science Foundation (NSF) Alliances in the nation, Alabama has been in the forefront of efforts to
increase the quantity and the quality of underrepresented minorities receiving baccalaureate degrees in
science, mathematics, engineering, and technology (SMET) fields. Many of the Alabama Alliance's
programs have been replicated by other alliances. The Alabama Louis Stokes Alliance for Minority
Participation (ALSAMP) began in 1991 with a baseline of 431 minority SEM undergraduate degrees
and reached a peak of 979 in 1999, a 127% increase. The baseline minority SEM enrollment for
ALSAMP is 3,301. The minority SEM enrollment for the 1999-2000 academic year is 5,876, a 78%
increase. These are indicators of success for ALSAMP Phase I and Phase II.

The ALSAMP Phase III proposal is designed to a) sustain the B.S. Degree production levels
and student retention rates specified as Phase II goals and b) define a baseline level of and commitment
to a significant increase in the number of previous, current, and future baccalaureate recipients entering
either a SMET graduate program or a graduate program in teacher education. Thus, the project
approach for LSAMP will involve sustaining and institutionalizing current LSAMP Phase II activities
and the implementation of new LSAMP Phase III activities as given below.

Programs to be Sustained and Institutionalized New LSAMP Phase III Programs
LSAMP Summer Bridge Program GRE Preparation for All Students
LSAMP Scholars Program Undergraduate Research for All Students
Summer Research Internship Program GRE Required for All LSAMP Students
LSAMP Graduate Bridge Program
SEM Student Mentoring Program Increase Number of SMET Students Entering Graduate School through Tracking Effort
Drop-In Centers/Cooperative Learning Intensify Recruitment of Technology Students
Summer Research Conference Increase Collaboration with Other Programs
Publication of The National LSAMP Magazine National LSAMP Publication in Phase III Budget

The major portion of the Phase III budget will support these new programs. Consequently, the
Phase II programs will be sustained by cost sharing from participating institutions, support from
private sources, and institutionalization. During the next five years, LSAMP will define a baseline
level of and commit to a significant increase in the number of baccalaureate degree recipients entering
either a SMET graduate program or a graduate program in teacher education. This effort will involve
preparing students for success in graduate school and placement in a graduate school of choice.
Students will be tracked through graduate school by means of the LSAMP Success Link Program
and a graduate student database will be maintained by the Alliance.

Collaboration with other NSF programs will be increased substantially, particularly with the
NSF Alliances for Graduate Education and the Professoriate Program and the NSF Urban Systemic
Program. Program activities will be disseminated through the publication of the National LSAMP
Magazine and a full-time program evaluator will be appointed to oversee assessment and evaluation
activities.